III-COR-Medium: Providing Provenance through Workflows and Database Transformations

Data provenance is a fundamental issue in the processing of scientific
information and beyond. Two lines of research have been pursued in
recent years with direct bearing on the issues of data provenance. In
one of them, provenance in workflows, the emphasis is on extracting
provenance from logs of events marking the execution of different
modules to various intial and derived datasets. In the other line of
research, provenance in databases, the emphasis is on the propagation of
provenance through the operators that make up database views, or on
propagation of provenance through copy/cut-and-paste operations within
and among databases. These two bodies of work employ different
techniques and at first glance their results appear quite different.
However, in many scientific applications, database manipulations
co-exist with the execution of workflow modules, and the provenance of
the resulting data should integrate both kinds of processing into a
usable paradigm.

By analyzing the work on data provenance in workflows and in databases,
the PIs identify what they believe are the main difficulties in unifying
and integrating these two different kinds of data provenance:
(1) the lack of a data model that is rich enough to capture the
interaction between the structure of the data and the structure of the
workflow; and
(2) the lack of a high-level specification framework in which database
operators and workflow modules can be treated uniformly.

In this project, the PIs aim to overcome these difficulties and thus
provide concepts and tools that allow a truly comprehensive approach to
the provenace of scientific data. The project's approach relies on a
data model that supports nested collections and on a functional language
approach to workflow specification. Based on this, the project aims to
deliver a framework and tools for defining, managing and querying data
provenance in complex
scientific workflows that include database manipulations. The project is
expected to impact bioinformatics (through interdisciplinary
collaborations in the Penn Center for Bioinformatics and the Penn Genome
Frontiers Institute) and phyloinformatics (through contributions to the
NSF AToL program) as well as ongoing standardization work on provenance
in workflows and in the business processes (eg., BPEL) community.

The results of this project are disseminated as publications, through
direct collaborations and through the project website:
http://db.cis.upenn.edu/research/UNIPROVE.html.